6th International Conference on Nanostructured Materials: NANO 2002; June 16-21, 2002, Orlando, Florida

The 6th International Conference on Nanostructured Material is to be held in Orlando, FL on June 16-21, 2002. This is the latest in the series of International Nanostructured Materials held for the first time in US. The objective of the meeting is to exchange information on the latest developments and new trends in nanostructured materials.

The topical areas range from theory and modeling to synthesis and processing as well as design and characterization of various nanostructured materials. The fabrication of various structural, functional and specialty materials for diverse applications will be discussed.

The work shop will involve most countries with active research in nanotechnology with about 800 international attendees.